Amphiphilic Peptides and Proteins

Eisenberg
MCB 9904671

Biophysical approaches will be applied to understanding protein self-interactions. The approaches include structural methods, particularly X-ray diffraction, but also light scattering, NMR, sedimentation, and electron microscopy. A key approach is the design and characterization of small protein molecules, with the aim of forming both small oligomers and fibers. Both an alpha helical system and a beta sheet system will be explored. The alpha helical system is an antiparallel three helix bundle; the beta sheet system is a left-handed beta helix, based on the known structure of a beta-helical carboxypeptidase.

The goal of the project is to understand at the atomic level, and to manipulate through design, how proteins recognize identical molecules and bind to them. Such interactions between proteins are at the core of life: they control signaling pathways in biological cells, metabolic pathways, and assembly pathways. They build up molecular machines that carry out synthesis and use of ATP, and the copying and translation of DNA. The designed nanomachines of the future will almost certainly depend on designed protein interactions. Also many applications in industry, agriculture, and biotechnology depend on improved understanding of the fundamentals of protein-protein interactions, on which this project is focused.